SESAME Development of Mathematics Courses for Improving Teacher Qualifications

This project will produce a series of textbooks to be used in professional development in mathematics for middle school teachers. The subject areas for the textbooks are Algebra, Calculus, Geometry, Number Theory, and Probability and Statistics. The books will emphasize content and pedagogy and will include ancillary materials such as videotapes of some of the professional development classes. The texts will come from the Seminars for Elementary Specialists and Mathematics Educators (SESAME) in the Mathematics Department at the University of Chicago. The writing team includes teachers, mathematics educators and research mathematicians.